MOREnet Expansion Phase 6

1 From: dstaudt at NOTE 3/24/94 4:57PM (1212 bytes: 25 ln) To: gclavon at nsf15 Subject: MOREnet Phase 6 ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] Mime-Version: 1.0 Content-Type: text/plain; charset="us-ascii" ------------------------------- Message Contents ------------------------------- ABSTRACT "MOREnet Expansion Phase 6" University of Missouri - Columbia PI: William Mitchell NCR-9402189 This award adds three higher education institutions to the MOREnet state network: College of the Ozarks Point Lookout East Central College Union Harris-Stowe State College St. Louis The new institutions connect to a hub located at the University of Missouri at Columbia. Faculty and students at the institutions benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.